Carbon-Bearing Fluids in the Oceanic Crust

9314638 McDuff This study will characterize the carbon bearing fluids from inclusions in ocean plutonic and diabasic rocks, with the intent of determining the origin of the fluids and their role in hydrothermal processes. These will be the first direct analyses for such rock types. Methods will include Raman spectroscopy, mass spectrometry for ions and stable isotopes, along with petrographic and thermometric properties. The results of the study will contribute to an understanding of sources and sinks in the global carbon budget. ***